Coronal Mass Ejections and the Rotational Bursting of F-Coronal Dust

This program is the third year of a three year continuing grant awarded to the Florida Institute of Technology. The principal investigator has transferred to the University of Central Florida, and had no residual second year funding; thus, the one-year award to UCF. The project investigates the rotational bursting of F-coronal dust particles to high density coronal mass ejections in the F-coronal region. Rotational bursting of F-coronal dust may take place due to the tension caused by high spin rate, which can be driven by four different spin mechanisms. These mechanisms will be investigated theoretically. Repeated rotational bursting from the parent particle and its fragments will alter the size distribution of the dust, and ultimately result in ejecting the resulting smaller particles from the solar system by the action of solar radiation pressure overcoming the gravitational attraction of the Sun.***